WoU-MMA: Collaborative Research: Constraining the Nuclear Equation of State and Neutron Star Astrophysics Through Multi-messenger and Multi-object Observations of Neutron Stars

The revolutionary discovery and multi-messenger follow-up of the first known merging binary neutron star (GW170817) has demonstrated the unique opportunities that observations and analysis of such mergers can provide. A scientific collaboration between Rochester Institute of Technology and the University of Tennessee, Knoxville, will develop the research infrastructure needed to exploit gravitational wave (GW) observations and electromagnetic observations in order to determine the nature of dense matter. The research team will develop a flexible procedure to self-consistently infer the nuclear equation of state (EOS) for neutron stars (NS), directly from multiple measurements of many NS, using GW measurements of mergers, X-ray observations of galactic NS, and light curves and spectra from the resulting kilonova explosion. An EOS is an equation, like the ideal gas law of physics, which describes the state of matter under a given set of physical conditions. Using the tools derived to understand the nuclear EOS, the investigators will determine if binary mergers are responsible for the observed r-process elemental abundances. The rapid neutron-capture process (r-process) is a set of nuclear reactions by which many of the atomic elements heavier than iron are produced in astrophysical settings. The project will include the training of young researchers as the first generation of truly multi-messenger astrophysicists, and the principal investigators will create new course materials for introductory general relativity, to educate the next generation of scientists in results from GW astronomy.

The research program has two major goals: to constrain the nature of dense nuclear matter and to determine whether NS mergers alone explain the abundances of r-process elements. The research team will create new high-precision surrogate models for kilonova light curves and spectra, calibrated to detailed radiative-transfer calculations. To draw inferences with data from multiple messengers and multiple objects, where each data source is connected to the EOS in a different way, the researchers will create a unified Bayesian inference engine, called Concordance. This inference engine will constrain dense nuclear matter and the composition of the neutron star core. It will also infer the NS merger rate, ejecta mass, and ejecta composition, which will allow the scientists to predict the element-by-element r-process abundances in the present-day local universe due to the observed population of binary NS mergers. They will compare their prediction to observations; determine whether and what kind of missing population (like black hole (BH)-NS) would be required to reconcile observations with element abundances; and see whether that missing population is consistent with formation scenarios and observational constraints. This project advances the goals of the NSF Windows on the Universe Big Idea.